SBIR Phase II: Advanced Unified Oceanographic Data Logger

This SBIR Phase II research project aims to complete the development of a fully-characterized, commercial prototype, Advanced Unified Oceanographic Data Logger (AUDL). This system aims to provide a new commercial standard for standalone data recording within existing and future oceanographic applications. The same technology will also provide best-in-class performance within the larger markets of terrestrial environmental monitoring. One key feature is that the AUDL will provide a nearly universal sensor interface. It will record data transparently from analog, serial-asynchronous, and digital sensors and instruments. This will enable GEOSense to target a wider range of applications and customers, with a single, low-cost system.

GEOSense will provide a commercial solution that significantly lowers the cost of technical data acquisition within a number of research and engineering applications. By reducing the overall cost of data recording, it is expected that the technology will enhance both the scientific return, and the educational opportunities, from limited research funds. It is hoped that the widespread application of this technology will increase the scope of expertise in oceanographic instrumentation.